X-ray Studies of the Structure of Liquid Surfaces

Dr. Pershan is involved in the study of the specular reflection of x-ray and synchrotron radiation from various classes of liquid-vapor interfaces in order to study the interface structure at the molecular level.